Role of Submicron Particles in Chemical Scavenging

Recent studies on chemical scavenging, based on either modelling or laboratory experiments, have suggested the importance of submicron particles. Bacteria and colloids are two kinds of submicron particles deserving special attention. The usual flow-through filtration using 0.4 um filters cannot separate these particles from solution cleanly. Consequently, the interpretation of solution-particle and particle-particle interaction may be biased. A cross-flow filtration method will be employed to filter seawater samples sequentially through 1 um, 0.1, and 1 nm filters, with the attempt of removing bacteria by the second filter and colloids by the third filter. Materials retained by the second and the third filters will be characterized by their C/N ratios to assess the contribution of colloids to the bacterial fraction. Isotopes of Th(230Th, 232Th, 234Th) and 231Pa will be measured on these and sediment trap samples. Except 234Th, which will be measured by B-counting, all other nuclides in seawater samples will be measured by mass spectrometry.